Coarsening Kinetics, Coherent Equilibrium and Evolution of Morphology and Spatial Correlations in Nickel-Base Gamma/ Gamma' Alloys

9526238 Ardell Several new aspects of the coarsening of gamma prime type precipitates (Ni3X, X = Al, Ga, Ge or Si) in binary Ni-X alloys are pursued during the course of this research. These include: (1) further studies of anomalous coarsening kinetics at small volume fractions, fv; (2) quantitative characterization of the evolution of the concave cuboidal morphology that gamma prime precipitates attain when fv is small, and characterization of the spatial correlations that eventually lead to rafting in nickel-base gamma/gamma prime alloys; (3) investigations of gamma prime coarsening at lower temperatures (T < 550 C) using magnetic analysis to measure quantitatively the influence of coherency strains and fv on the equilibrium coherent solubility limits in Ni-X alloys, including Ni-Ti alloys. It is also proposed to initiate a new project on the coarsening kinetics of Al3Sc precipitates in binary Al-Sc alloys. The principal methods of analysis are dark-field transmission electron microscopy (TEM), image-analyzing software applied to scanned TEM negatives, magnetic analysis to measure the variation of the solute concentration of the matrix during gamma prime coarsening in Ni-base alloys, and electrical resistivity to make comparable measurements in Al-Sc alloys. %%% This research has relevance to microstructural formation and stability in high temperature metallic alloys. The emphasis is on binary nickel-base alloys, the principal base for superalloy development. ***